Planning Visit for Cooperative Research Program- Paleomagnetism of Kalimantan, Indonesia

*** 9514139 Fuller This is a planning visit proposal submitted by Dr. Michael Fuller, the University of California at Santa Barbara. He plans to visit his counterparts in Kalimantan, Indonesia for site evaluation for a paleomagnetic study and for field logistics. Large scale platewide rotations have been noted by paleomagnetic studies using the results collected from the Philippine Sea Plate in the East to Myanmar (Burma) in the West. Additional paleomagnetic data from Kalimantan, Indonesia are needed to ascertain whether such geological signals are present in the area. Dr. Fuller will use this planning visit to assess the accessibility to research sites and field logistics. ***